U.S.-Hungary Research on Ultrashort Laser Pulses

The primary objective of this U.S.-Hungary research project between Dr. Frank Tittel of Williiam Marsh Rice University and Dr. Zsolt Por of JATE University, Szeged, is to pursue two related topics: 1) novel ultrashort laser pulse techniques and 2) production of nanostructures using direct laser ablation or photochemical processing. These efforts are intended to contribute to development of new broadband ultrashort laser pulse amplifiers, and to advance our understanding of the production of nanostructures using direct laser ablation. Results of this project should contribute to our knowledge of basic physical mechanisms of UV laser ablation of polymers and should offer insight on such important questions as whether new photochemically induced absorbers are formed by direct photo dissociation, radical formation after a chemical reaction, or other photochemical processes. Results may lead to refinements for an interferometer capable of producing nanostructures in organic materials by direct laser etching. This project in quantum electronics, waves and beams fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.